Transmission Electron Microscope for the University of Maine

As a central research facility, the Electron Microscopy Laboratory of the University of Maine is a resource for a wide variety of projects in the biological as well as physical and chemical sciences. Research projects making use of this facility call for a new transmission microscope equipped with a eucentric goniometer stage; this proposal requests funding for such a microscope. Twenty-two investigators have been identified to represent a range of applications to which this microscope will be applied; five fo these investigators, with NSF-supported projects are identified as major users. Projects specified in this proposal call, for example, for ultrastructural stereological analysis to clarify the roles of mitochondria in hyperoxic and hypoxic conditions and in acclimation to life at low temperatures, to characterize diurnal changes in photoreceptors, and to quantify effects of acid-rain stress in plant and animal tissues. Ultrastructural immunocytochemistry will be used in some projects to identify extracellular matrix components of lower invertebrates, to localize enzymes in plant/fungal associations, and to characterize enzymes of wood degradation. In systematic biology, phylogenetic analysis of ultrastructural characters will be used to elucidate evolutionary relationships in diatoms, higher plants, and lower invertebrates. Applications in molecular biology and virology include characterization of extrachromosomal DNA in a protist and characterization of genetic material and structure of a mycovirus.//